Quantum Dynamics Simulations of Polariton Photochemistry under the Collective Coupling Regime

Pengfei Huo of the University of Rochester is supported by an award from the Chemical Theory, Models, and Computational Methods program to explore how collective coupling between molecules and a quantized cavity radiation field influences photochemistry. Coupling molecules to an optical cavity generates new photon-matter hybrid states, known as polaritons, which feature delocalized excitations across molecules and cavity modes. These states have been shown to enable novel chemical reactivities and offer a promising strategy for controlling reactions by tuning fundamental photon properties. Such control could open a new paradigm for chemical transformations with significant implications for catalysis, energy production, and the broader field of chemistry. Dr. Huo and his group are developing advanced theoretical and computational tools to simulate polariton dynamics in the collective coupling regime. Using these approaches, they aim to uncover how light-matter interactions at this scale affect photochemical processes. Beyond research, Dr. Huo continues to inspire the next generation through his Journey to the Molecular World summer school for high school students in the Rochester City School District, fostering curiosity and enthusiasm for molecular science. He also collaborates with colleagues to organize the Telluride Workshop on Polariton Chemistry, which brings together experimentalists and theorists to share the latest discoveries in this emerging field.

Dr. Huo and his group will develop a set of general and powerful theoretical and computational tools that enable direct ab initio on-the-fly simulations of polariton quantum dynamics under the collective coupling regime. These theoretical efforts include (1) developing approaches that enable direct simulations of polariton quantum dynamics under the collective coupling regime, (2) investigating the fundamental mechanisms of collective polariton photochemistry, and (3) developing on-the-fly computational techniques and machine learning models to simulate ab initio polariton dynamics under the collective regime. The proposed work will provide the emerging molecular polariton field with a set of general and powerful tools to simulate collective polariton photochemistry, as well as new mechanistic insights into polariton photochemistry. The proposed theoretical development will enable a full spatial-temporal description of polariton dynamics, going beyond typical single cavity mode approximation and long-wavelength approximations. The investigations will likely yield new mechanistic insights into the collective polariton photochemistry and help answer several conceptual questions, including how collective quantities (such as Rabi splitting of polaritons) impact chemical kinetics, and provide valuable theoretical guidance for future experimental works.